U.S.-Czech Materials Research on Kinetics of Microphase Separation in Copolymers

INT 9600679 Bansil This U.S.-Czech materials research project between Dr. Rama Bansil of Boston University and Dr. Cestmir Konak of the Institute of Macromolecular Chemistry will examine microphase separation phenomena in several copolymer systems, including block, graft, random, and random multiblock copolymers. To do so, the researchers intend to combine techniques of time-resolved small angle light scattering (SALS) with time-resolved small angle x-ray scattering (SAXS) to perform a systematic examination of microphase separation kinetics and structure in block copolymers. Their objective is to determine which features of the phase separation process are universal and which depend on specific chemical interactions. Findings should improve our basic understanding of the relationship between the structure of polymers and their specific interactions with solvents. Results may have technological applications in areas such as adhesives, emulsifiers, and barrier materials. This project in polymers research fulfills the program objective of advancing scientific knowledge by enabling experts in the United States and Eastern Europe to combine complementary talents and share research resources in areas of strong mutual interest and competence. ??